CAREER: Mapping Energy Landscapes of Protein Conformational Switching

This award in the Chemistry of Life Processes program of the Chemistry Division is co-funded by the Biomolecular Systems Cluster in the Division of Molecular and Cellular Biosciences. The award supports work by Professor Ekaterina Pletneva at Dartmouth College to probe and then rationally modulate mechanisms of conformational switching in signaling proteins. The studies will determine how redox chemistry and ligand binding combine with the protein folding dynamics to afford function. Kinetic measurements of gated electron transfer and fluorescence resonance energy transfer will serve as analytical tools to quantitatively characterize structural changes in proteins and thus experimentally map energy landscapes of protein folding and function. Teaching efforts will bring elements of modern research into upper-level and introductory chemistry courses including opportunities for undergraduates to influence science through critical writing. Professor Pletneva and her students work on the Women in Science project at Dartmouth and reach out to local science teachers and their students, establishing connections with a young generation of prospective scientists. These studies advance understanding of many biological systems where conformational changes govern function and provide valuable insights for the design of protein-based switchable devices for use in electronic nanocircuits and artificial photosynthesis. Rational manipulation of protein folding and switchable behavior will be an important step toward these engineering applications.